SBIR Phase II: Real-Time, In-Situ, Process Control for Chemical-Mechanical Polishing Planarization

9422568 Tang This Small Business Innovation Research (SBIR) Phase II project develops a thickness monitoring and control technology for chemical mechanical polishing (CMP) of semiconductor thin films. Phase I established a baseline capability in this new non-contact, real-time, in-situ monitoring technique. Phase II further develops a practical system utilizing a dedicated monitoring region at a wafer center. The approach is one of continuous interferometric monitoring of film thickness from back of the wafer. An industrial partner, R. Howard Strasbaugh, Inc. of San Luis Obispo, CA, is supporting Phase II with in-kind services and use of facilities. The technology is expected to find commercial application in CMP operations in the semiconductor industry. It can alleviate depth-of-focus problems and other problems encountered in multi-level metallization designs.